NER: Nanopatterened neuronal networks and integrated fluorescence sensing for biomedical applications

0608742
Bartoli
The proposed research addresses current barriers in the development of fluorescence-based bio/chemical sensing systems. The investigators intend to improve optical excitation in such sensors by using an embedded organic light emitting diode (OLED) as the source, coupling it to the neuronal network in a single structure, and employing biocompatible designs. This work will advance understanding and enable new technology in the field of bio/chemical sensing. If successful, it will facilitate the development of low-cost miniaturized biosensors capable of detecting toxin-induced changes in neuronal activity, which would be useful in the treatment of neurological disorders, such as Alzheimer's disease.